Mathematical Sciences: Investigations in Linear and Nonlinear Programming

8904406 Todd This project focuses on linear programming and its extensions, especially in interior point methods and in probabilistic analysis. Linear programming is the most basic constrained optimization problem and has wide-ranging applications in the physical and engineering sciences. Variants of Karmarkar's projective algorithm have very attractive theoretical and computational properties. Part of the effort will be devoted to understanding and improving Ye's potential function method. Convex quadratic programming is also a fundamental problem, both in its own right and as a subroutine in nonlinearly-constrained optimization. Efforts will be made to develop new potential function methods for its solution. New probabilistic models for linear programming will also be investigated both to understand more fully the structure of such problems and to evaluate experimentally and analytically the expected behavior of particular algorithms.